Undergraduate Fuzzy Logic Laboratory

Fuzzy logic is a very rapidly growing technical domain. In an effort to keep our undergraduate students current in this application field, Milwaukee School of Engineering is developing a laboratory for the study of fuzzy logic and its applications. This laboratory will be used primarily for the course Fuzzy Sets and Applications and in senior projects for electrical, computer, and biomedical engineering. To a lesser extent this laboratory will also support courses in virtually every other major at the Milwaukee School of Engineering. The equipment and software required should be capable of supporting a broad range of fuzzy logic applications such as control, information retrieval, semantic analysis, robotics, decision systems, and image recognition. The major equipment requested consists of a graphical shell for fuzzy computations, expert systems shell, computation acceleration boards, and developmental cross-compilers as well as the platform on which to run the applications. Through appropriate use of these tools students should be capable of studying the semantic nature of fuzzy sets, the use of expert and decision-making systems, the development of control systems using common sense knowledge, and the application of fuzzy logic to image recognition, robotics, and information retrieval. Significant impact from this laboratory is expected curriculum-wide as fuzzy logic and its applications continue to pervade industry.